Supersymmetry, Supergravity, and Strings

The purpose of this research in the area of theoretical particle physics
is to study aspects of supersymmetry and supergravity, which are main
ingredients in the description and analysis of superstring theory.
Superstring theory is the major candidate theory for the study of the
fundamental constituents of matter as well as the unification of all
the forces between them, including gravity. The viability of superstring
theory depends crucially on the existence of supersymmetry, a concept
that tells us that at some fundamental level elementary particles, though
superficially distinct in their properties, share an underlying identity
which allows them to be considered as different facets of a single
entity. By studying supersymmetric theories, of which supergravity
is the one relevant for string theory, we learn how to analyze it and how
to perform calculations and gain information which ultimately
will allow us to confirm that with this beautiful theory we have
indeed reached the goal of understanding how Nature works at the most
basic level.